Group Travel Award to Support U.S Participation in Meeting of International Federation of Classification Societies, Rome, Italy, July 1998

The 6th conference of the International Federation of Classification
Societies (IFCS) will be held in Rome, Italy, July 21-24, 1998.
IFCS consists of the classification societies of North America,
Great Britain, Italy, France, Germany, Belgium/Netherlands, Portugal,
Poland, Japan, and Korea. While the various member societies differ
in emphasis and philosophies, they share a common interest in problems
of classification, cluster analysis, and data analysis in such areas
as biology, library science, statistics, medicine, social science,
psychology and philosophy.

This proposal will provide grants to help defray the cost of travel
for approximately 5 U. S. citizens or permanent residents to
participate in this conference. Grants under this proposal will be
limited to the approximate cost of airfare. This support will encourage
those who might not otherwise be able to attend IFCS 98, junior faculty
in particular, to become part of the international community of
researchers in the fields of classification, clustering, and data
analysis, and to become aware of the many alternative philosophies,
uses of, and approaches to data analysis and classification-related
problems in particular.